Santa Ana-Fullerton Elementary Mathematics Project (SAFEMAP) II

This two-year project will adapt the model developed under a current award and disseminate it to three additional elementary schools in Orange County, California. Focused on a district with a predominantly Hispanic population, the project will support minority students who exhibit potential in mathematics, help parents to encourage their children in mathematics, and improve the mathematical knowledge and instructional strategies of teachers in grades K through 6. Thirty-three teachers in each of three elementary schools will participate in the project, which includes instruction in mathematics content and methodology and emphasizes the use of calculators. In order to accommodate the region's year-round schools, this instruction will take place on fifteen weekends throughout the year. It will be carried out by three teams of three teachers each (two elementary teachers who participated in the previous project and one high school teacher). Other project activities include a bimonthly newsletter and visits by project staff to participants' classrooms. Evaluation will include assessing the project's effects on teachers, students, and parents. The university and the school district are contributing as cost-sharing an amount equal to 159% of the NSF award.